Computer-Aided Engineering for Computer Architecture Laboratories

This project establishes a computer-aided engineering environment for students doing computer designs and implementations in their undergraduate computer architecture courses. The environment includes tools for combinational and sequential network design and for automatic generation of netlist forms for validation using digital simulation. The project will provide modern workstations that will ensure the feasibility of doing realistic designs. These designs include microprogrammed microprocessor design in the introductory computer architecture course, and parallel processor designs in the advanced term. The designs are validated using gate-level and functional simulation. This project is significant in establishing a laboratory mode for computer architecture that allows large and complete computer designs within a reasonable amount of time. The workstations provide a stimulating interactive environment for constructing and debugging computers.